Volatile Organic Chemical Transport in Unsaturated Soil

Research on factors that influence the transport of contaminants in soil that is unsaturated with water is undertaken. The objective of this project is to formulate a mathematical model that can be used to predict the rate at which contaminants of groundwater move through and interact with soil.